An Integrated Digital Instrumentation Approach to the Basic Circuit Electronics Laboratory Experience for All Engineering Majors

NSF provides funding for the development of an integrated digital instrumentation approach to instruction in basic electrical circuits and experimentation in the electronics laboratory. Four laboratories are outfitted with eight workstations consisting of the IEEE 488 bus instruments including an oscilloscope, function generator, digital multimeters, frequency counter, and pulse generator is interfaced to an AT-compatible engineering workstation which provides enhanced graphics, data acquisition and processing software, circuit simulation available in a MS-DOS environment. Eight workstations networked to two printers are provided each of the laboratories. Experiments are revised to incorporate the capability of the enhanced environment. The institution is providing matching funds in an amount equal to or greater than the funds provided by the Foundation.